Mathematical Sciences: Partial Differential Equations: Free Boundary Problems

9703842 Friedman The proposed research will concentrate on the development of new analytic methods for solving free boundary problems. The first class of such problems are the Navier-Stokes equations used to model coating flow. The second topic will be Stefan type problems where the free boundary has very large oscillations and this involve homogenization and boundary layers; such models arise, for example, in chemical vapor deposition. Next topic will be the propagation of a crack in elastic material, where the free boundary moves, with time, into the region. Other areas of research will involve nonlinear systems of elliptic variational inequalities and motion of particles in fluid. The problems to be studied arise in mathematical modeling of industrial processes and design. They include the coating of photographic film, the design of magnetic heads for improved sound transmission, processing of semiconductors, rheological properties of immersions, and the analysis of cracks in metals. Based on our past experience, it is anticipated that the analytic methods which will be developed will enable one to develop very efficient numerical schemes for computing quantities of interest for these models, so that improved industrial products can be designed in shorter time.